REU/RUI: Floral Development and Evolution in the Zingiberales

Dr. Bruce Kirchoff of the University of North Carolina at Greensboro is studying the development of inflorescences and flowers in selected species of the plant group Zingiberales, which includes bananas, gingers, and other tropical taxa. The analytical component of the project, using light and electron microscopy, encompasses detailed determination of the timing and sequence of initiation and maturation of cellular primordia giving rise to floral parts (sepals, petals, stamens, carpels), their relative degrees of fusion, and their arrangements in compound branching structures (inflorescences) which are complex in this group of plants. The goal is to map these developmental events against what is known about the evolutionary history of Zingiberales in order to determine trends of floral evolution, assessing those patterns that have evolved repeatedly as opposed to those that are unique. Such insight will provide an understanding of the mechanisms of morphological change in shape and size in plants.